Engineering Research Equipment Grant: A General Purpose Electro-Optic Sampling Station

This equipment project will provide state-of-the-science instrumentation needed for advanced research in electronic devices and circuits; it will be used to establish a general purpose electro-optic sampling station. The station will allow non-invasive optical probing of devices and circuits. Electro-optic sampling is a powerful technique for making non-invasive measurements of voltages on circuits or microstrip transmission lines. Work on extensions to, and on the limits of this technique will also be performed. This station will provide support for and benefit from ongoing research programs in the areas of millimeter-wave (mm-wave) integrated circuits, high speed GaAs devices and circuits, and optical modulators and detectors at Berkeley.